TERRA: An Environmental Science Summer Camp

Eugenio Maria de Hostos Community College and Cornell University Cooperative Extension collaboratively designed this environmental summer science camp in which fifty African-American and Hispanic ninth grade students per year will participate in innovative, inquiry-based scientific projects and learn about careers in science, engineering, and mathematics. Through hands-on laboratory activities, participants will learn about the deterioration of the environment as it affects land, air, and water resources, and the role of scientist and engineers in protecting and reversing this environmental damage. Utilizing New York City's natural resources as well as its professional scientists, engineers, and mathematicians, students will also learn about science from a socially responsible and ethical perspective. TERRA brings together practicing scientists, college faculty, and high school teachers to challenge and motivate minority ninth graders to stay in school, take additional courses in high school, and learn about career opportunities in these fields.